An Investigation of the Performance Characteristics of the Lottery Procedure for Controlling Risk Preferences

Many theoretical models in modern finance, organizational economics, information economics, and game theory rely heavily on how individuals react to risk. The purpose of this proposal is to analyze risk preferences by the use of experimental methods in a laboratory setting. Specifically, experiments will be designed and run with human subjects to determine the factors that govern the experimentalist's ability to induce particular risk attitudes for an experimental commodity, and then to compare this ability to induce preferences to various techniques for the direct measurement of preferences over monetary gambles. A better understanding the role of risk preferences is important not only from a theoretical, but also from a practical standpoint. Recently, a plethora of institutional changes, ranging from computerized trading and new financial instruments to new regulatory rulings on trade inequities, have emerged. The evaluation of these institutions has immense, practical import, given the magnitude of resource transfers that occur in these institutions.